The Americas Program: International Symposium on Statistics in Agriculture and the Environment; Santa Marta, Colombia, June 1995.

9525771 Marx This Americas Program award will fund travel and related expenses for six U.S. scientists to participate in an international symposium on statistics in agriculture and the environment, to be held in Santa Marta, Colombia, in June, 1995. Organizers are Dr. David R. Marx, University of Nebraska, Lincoln, and Dr. Jorge Martinez, Universidad Nacional de Colombia, Bogota. This is a joint meeting of three organizations: the Colombian National University, the International Biometric Society for the Caribbean, Central America, Colombia and Venezuela, and the Interamerican Statistical Institute, with headquarters in Panama City, Panama. The conference's objectives will be to bring together statisticians and biologists from the Caribbean, Central America, Colombia and Venezuela to promote scientific exchanges, delimit common research areas, and to stimulate relationships between universities and research institutions in Latin America. Applications of statistics to censuses and social sciences are commonly used throughout Latin America. Biometrical and environmental applications are less well known. The existing serious environmental problems in the region call for such applications and require well-designed studies. It is important for statisticians and mathematicians to work jointly with biologists in developing statistical techniques to solve these serious problems. This meeting is designed to bring these various groups together. ***